Research in Knots, Links and 3-Manifolds

Abstract

Award: DMS-0102231
Principal Investigator: Xiao-Song Lin

The central theme of this project is to explore as thoroughly as
possible the significance of the Jones-Witten and Vassiliev
invariants to knots, links, and 3-manifolds as topological
structures. To be more specific, we will study the thermodynamic
limit of the colored Jones polynomial using various probabilistic
models; to explore beyond a simple formulation of the Casson
invariant we found; to understand the congruence relation among
Ohtsuki's invariants through congruence subgroups of the modular
group; to find the normal form of a degree 1 map from a knot
complement to another knot complement; to study the cohomology of
knot complexes; to explore the applicability of classical
techniques in 3-manifold topology to the study of Vassiliev
invariants; and to continue the study of value and root
distributions of the Jones polynomial.

The phenomenon of knotting is a fundamental feature of the space
that we live in, and knot theory is thus an important part of
mankind's scientific knowledge because it is aimed at
understanding the interplay of mathematical formulae and space
structures. It is no wonder that concepts and tools originated
from knot theory have been used in many areas of mathematics, as
well as in chemistry, biology, physics, and computer science. For
example, geneticists utilize knot theory to understand the
processes of DNA replication and the function of enzymes that
"unknot" DNA strands, and chemists use knot theory to understand
and distinguish between different types of molecules. Our ability
to discern different knots could well be served as a test of our
scientific understanding of space structures.